Dissertation Research: Phylogenetic Relationships of Papilio Species

The wealth of natural history information about swallowtail butterflies (family Papilionidae) has catalyzed the elucidation of numerous classic biological concepts. At present, associations of papilionid caterpillars and their food plants are being studied throughout the world to gain greater understanding of basic biological processes as well as economic benefits to agriculture. Unfortunately, this work is crippled by the lack of a reliable taxonomic framework describing evolutionary relationships among most species of papilionids. However, DNA technology offers new tools for understanding relationships among these insects. In particular, the mitochondrial (mt) DNA molecule is easily isolated, surveyed for restriction sites and sequenced. Felix Sperling, under the supervision of Dr. R. G. Harrison at Cornell University, will use mtDNA sequence information to infer relationships among a broad selection of species in the Papilionidae. Work will concentrate on the most poorly understood genus, Papilio, which is one of 24 genera in the Papilionidae but contains two fifths of the species. All eight species in the Papilio machaon species group will be surveyed for restriction site variation within and between populations. Using the polymerase chain reaction, at least 1000 base pairs will be sequenced in 35-40 of the 220 species of Papilio. This will allow estimation of the phylogenetic relationships among all major sections of Papilio, and will provide a much firmer basis on which to interpret the diverse array of biological data available for these insects.